Biotech-Reep Partnership

The National Association of Biology Teachers, Georgetown University, and Edvotek, Incorporation, have formed a partnership to make the introduction of modern molecular biology experiments into high school courses feasible for all schools. Workshops will be used to introduce high school teachers to appropriate experiments and they will then be able to obtain the necessary materials and equipment from Edvotek, which has developed an inexpensive line of laboratory equipment specifically designed for high school use. For only $90, about half the actual cost of consumables and shipping, a school will be able to obtain a kit containing all the necessary materials, equipment, and instructions. Equipment must be returned within four weeks to Edvotek, where the kits will be replenished and prepared for reshipping. Schools will have to furnish a purchase order for $1000, the cost of the kit, when ordering the kit, but this will be returned when the reusable equipment is returned. The experiments were designed and the equipment developed in conjunction with National Science Foundation-funded teacher workshops conducted at Georgetown University and other locations in recent years. They have been tested by the teachers who have taken the workshops both in the summer workshops and in their own classes back at school. Cost sharing by the partners will total 120% of the National Science Foundation funding.